Contact Floer Homology

Abstract

Award: DMS-0072658
Principal Investigator: Alexandre B. Givental

In Symplectic Topology, the properties in question are usually
formalized in the language of Floer homology theory and Gromov-
Witten invariants. The proposed project is to extend and
intertwine these two formalisms in the context of Contact Topology.
The generalization exhibits natural relationships with the string
theory and, moreover, shows how the structures of classical and
quantum field theory emerge form the stringy properties of
contact Floer homology. The project is conceived as a joint work
of the P.I. with Ya. Eliashberg (Stanford University) and
H. Hofer (Courant Institute) and is a part of the larger project
"Symplectic Field Theory" started by the latter two authors
several years ago.

The project originates from Symplectic and Contact Topology
launched in the beginning of the twentieth century by A. Hurwitz
and H. Poincare and studying profound geometrical properties of
classical mechanical systems. The mechanical notions of position
and momentum coordinates lead to the geometric notion of a
symplectic structure, in which the Hamiltonian formulation of
mechanics becomes extremely natural. Contact structures are the
odd-dimensional counterparts to symplectic structures. In
addition to their appearances in the study of subspaces of
symplectic manifolds, contact structures have been of particular
interest in dimension three, where geometric ideas are
illuminating some difficult questions in topology